Mathematical Sciences Computing Research Environments

The Department of Statistics at North Carolina State University will purchase computer workstations, a compute/file server, and graphics equipment which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects, including in particular: Estimation and Inference for Noisy Chaotic Systems, Exact Conditional Tests for Contingency Tables, Numerical Methods for Bayesian Analysis, Inference in the Presence of Nuisance Parameters, and Probabilistic Neural Firing Models.